Mathematics and Statistics Computer Laboratory for Student and Course Enrichment

Students are using a computer laboratory equipped with IBM PS/2 Model 50 microcomputers. Graphing and symbol manipulating software packages are being used in calculus, and some other, courses to allow students to perform experiments. This will enhance student's ability to understand the underlying concepts. The institution will provide funds to match this grant.